Role of Methyl Salicylate in Plant Defense Response

9810520
Raskin
The proposed work will determine if methyl salicylic acid (MeSA) serves a role in establishing plant defense responses when it is in volatile and non-volatile forms. Prior work has established that salicylic acid functions as an important signal for induction of plant defense responses. Recent preliminary data indicates that injured or infected plants produce sufficient MeSA to signal neighboring plants to induce their defense responses, presumably as a precautionary means against potential attack. In addition, other preliminary data indicate that mesa may serve as a phloem mobile from of SA. The results of the proposed experiments will demonstrate the roles of MeSA in the defense signally process. Moreover, as part of the work, the PI will complete the characterization of the biochemical steps and enzymes involved in MeSA production. The results of this basic research may lead to improved methods for increasing the natural defense mechanisms in plants and, thus, may have agronomic significance.